18th International Workshop on Electromagnetic (EM) Induction in the Earth (EM) Workshop; El Vendrell, Spain; September 17-23, 2006

0623171
Jiracek

This award provides funding for the 18th International Workshop on Electromagnetic (EM) Induction in the Earth. This workshop is sponsored every two years by the International Association of Geomagnetism and Aeronomy (IAGA) and the International Union of Geodesy and Geophysics (IUGG) and is the primary forum for earth scientists in the world to share their EM research and plan international cooperative experiments. The workshop will be held in El Vendrell, Spain on September 17 - 23, 2006 and will be hosted by the Universitat de Barcelona.

EM measurements provide a unique view of the Earth because of the sensitivity of electrical conductivity to temperature, fluids, ore minerals, and lithologic variations. This sensitivity is important in monitoring environmental problems, exploring for energy and mineral occurrences, studying the interior structure of the Earth and other planets, and while investigating regions of potential natural and man-made hazards (e.g., seismic, volcanic, unexploded ordinance).